Modeling & Manufacturing of Multi-Functional MMCs through Ultrasonic Consolidation

The objective of this research is to investigate the use of ultrasonic consolidation (UC) to produce fiber-reinforced metal matrix composites (MMCs) and to develop effective methods for predicting properties of MMCs produced using UC. The approach is to develop models, based on both a fundamental understanding of material behavior and designed experiments, which describe how ultrasonic energy enables the embedding of fibers within a metal matrix and the mechanical properties of the resulting fiber-reinforced metal matrix structures.

The ability to more cost-effectively design and fabricate MMCs will significantly impact many industries, including transportation, communication and defense. Thus, the successful completion of this research could have broad societal impact. In addition, as the research progresses, the results will be integrated into undergraduate and graduate learning at Utah State University, and special attention will be given to opportunities to attract and retain underrepresented students at both the undergraduate and graduate levels.